Dissertation Research: Genetic Basis of Flowering Date in Arabidopsis thaliana

Life history characters such as fecundity and age at first reproduction, are closely related to the ultimate survival and reproductive ability of plants. Life history traits are directly affected by artificial and natural selection and are therefore of particular concern for both plants breeders and evolutionary biologists alike. The expression of these traits is thought to be the result of many genes of small effect (quantitative trait loci or QTLs). Predictions about the rate and direction of evolutionary change depend on the number of segregating QTLs and the magnitude of their effects. The actual number of QTLs involved in quantitative variation, and the importance and prevalence of QTLs of large effect is still virtually unknown. Methods based on statistical theory have been used to estimate the minimum number of QTLs influencing a trait, and the relative magnitude of their effects, but these methods lack precision. In contrast, techniques of molecular biology and classical quantitative genetics provide a powerful means of estimating the minimum number of QTLs and their relative effects. This study will use genetic markers in Arabidopsis thaliana to answer the following questions: 1) How many QTLs control the timing of flowering? 2) Are there genes of large effect? 3) Do interactions between flowering time and other characters important to plant survival prevent genes of large effect from being important in the evolution of flowering time? Arabidopsis is the ideal organism for this study because the existing map is extraordinarily complete. The existence of naturally occurring inbred lines greatly simplifies statistical analyses. These techniques have been used with success in marker-aided selection programs for economically important traits in a few crop plants. They are powerful tools in genetic improvement programs, as well as for addressing fundamental evolutionary and genetic questions. However, these techniques have not been applied to natural plant populations. This work will provide some of the first data on the number of genes and the magnitude of genetic effects within species.